Research Experiences for Undergraduates: Summer Undergraduate Research Program in Computer Science

This project will bring 10 undergraduate students to the University of Nebraska for 10 weeks during the Summer of 1991 to do research into databases, information retrieval, and expert systems. The format of this ten week summer program includes formal instruction (lectures and seminars) in the morning and active research in the afternoon. Sample projects include: "Inference Mechanisms Based on a Multivalued Scale of Certainty", "Techniques for Dealing with Imprecision, Uncertainty, and Information Incompleteness in Query Processing", "Integrating Database Management Systems with Information Retrieval Systems" and Incorporating a System-User Adaptation Mechanism into the Pure Boolean Information Retrieval Process.